Posture Development and Perception-Action Coupling

The overall goal of this research is to understand the relationship between
perception and action in the development of infant postural control.
Although the development of posture and locomotion has been well
documented, only recently has an understanding of the processes that
underlie these changes been sought. This project examines
perception-action coupling as one of the processes that may contribute to
the observed changes. The research is designed to examine the relationship
between perception and posture in three ways. First, we propose to study
infants' postural development longitudinally from the onset of sitting to
three months after the onset of independent walking. Second, we focus on
the role somatosensation plays in postural control. And third, we measure
the coupling relationship between somatosensory input and the infant's
postural responses. Infants will be tested sitting and standing in one of
3 conditions: touching a fixed bar with the hand, no touch (hands free),
or touching a gently moving bar. Relationships between the excursions of
the head, center of mass, and center of pressure as well as forces applied
at the hand will be analyzed. Data are expected to provide critical
information about the study of normal infant postural development as well
as to lay a foundation for understanding those infants with abnormal or
delayed postural development.